Many-Body Effects in Charge-Transfer Processes at Metal Surfaces

9521444 Nordlander The objective of this research program is to increase the understanding of charge transfer phenomena between atoms and simple molecules, and metal surfaces. The Principal Investigator will develop and apply a dynamical many-body method, based on Green's functions, in which he calculates the charge transfer probabilities by solving a set of coupled integro-differential equations. The project includes an investigation of the influence of substrate temperature, particle velocity, atomic and molecular level degeneracy, substrate band width, and substrate density of states on charge transfer. The results of this project provide the theoretical background for an accurate description of charge-transfer processes in atom/molecule- surface collisions. This formalism helps to interpret specific experimental results and to relate microscopic properties of the surface to actual experimental data. %%% This project develops of theory of the scattering and colliding of atoms or molecules with metal surfaces. The main focus is on the transfer of charge between the surface and the colliding particle. Part of the project involves the development of the complex quantum theory that one needs to properly describe these collisions. The project includes an investigation of the influence of a variety of properties of both the substrate and the colliding particle on charge transfer. This formalism helps to interpret specific experimental results and to relate microscopic properties of the surface to actual experimental data. Such scattering events are a primary way to measure various physical properties of surfaces, the knowledge of which is necessary to develop new and better materials. ***